NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1998

Abstract DBI-9803897 Yingquing Lu This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1998. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled evolving genes of self-incompatibility in natural populations of solanaceous species. Self-incompatibility (SI) prevents self-fertilization in many plants. Natural plant populations of Physalis longifolia and Solanum carolinense are being surveyed and patterns of genetic variation in allozymes and SI specficities characterized. Numerical simulation studies are used to infer from such information historical demographic events and the nature of selective processes operating in the natural populations.